Conceptual Structures and Data Structures for Engineering Database Design

There continues to be a gap between the special functional requirements known to characterize engineering databases and the ability of currently popular database theories and software technologies to service these requirements. This problem is especially annoying to those designing so-called CAD/CAM databases from information relating to the design and manufacture of products. A solution, if effected, is expected to provide significant productivity gains in both design and manufacturing. The problem stems largely from a lack of understanding of how to manage not the data about the world being modelled, but the diversity of possible representations of objects that are of interest in the CAD/CAM domain. This research proposes to make progress on this issue by first adopting a simplified conceptual schema for modelling the objects and relationships of an extensible framework that will allow results obtained to be extended upward to a richer model when satisfying results are obtained. This proposal presents a plan to develop both the required theory and a software environment for working with the same. The result will be the construction of a "first-pass" conceptual modelling paradigm for the development of engineering databases.